Sedimentary Basin Development & Deformation Adjacent to the Mojave-Sonora Megashear, Sonora, Mexico: Evaluation of the Mid-Mesozoic Tectonics of the Southwestern Cordilleran Margin

The identification of ancient continental transform margins has proven difficult
for a variety of reasons. Transform faults are commonly reactivated subsequent to their
active transcurrent displacement histories by younger tectonic processes. In addition,
piercing points that permit assessment of offset are commonly equivocal and subject to
multiple interpretations. However, analysis of sedimentary basins developed adjacent to
transform faults, particularly faults that transect marginal continental lithosphere,
provides a powerful tool for evaluation of ancient transform margins. Evaluation of the
timing of deposition and deformation is especially critical, because the two processes
should be partly coeval in strike-slip basins. In northern Sonora, the postulated Mesozoic
type example of a continental transform, the Mojave-Sonora megashear, juxtaposes a
continental crustal fragment, the Caborca block, against cratonal North America along
what is now a complex structural zone. A narrow, deformed sedimentary basin of Late
Jurassic-Early Cretaceous age lies along this structural boundary for a distance of more
than 300 km. The subsidence history of the basin largely coincided with the posited
displacement history of the megashear and so provides a unique opportunity to evaluate
the megashear hypothesis and understand the processes that constructed the Late
Jurassic-Early Cretaceous Cordilleran continental margin.
A two-year field- and laboratory-based study proposed here will determine the
depositional and structural evolution of the sedimentary basin adjacent to the megashear
and the uplift history of the Caborca block, which forms the present southern edge of the
basin. The objectives of the research fall into three major categories:
1. Basin origin and its Mesozoic proximity to the Caborca block.
Lithostratigraphic, biostratigraphic, and geochronologic analysis will determine the
lifespan and geometry of the basin, while provenance studies will determine if the
Caborca block was a sediment source for the basin. Fossils in the strata and interbedded
volcaniclastic rocks make this objective practicable.
2. Deformation kinematics and chronology of the basin. Strata in the basin are
locally tightly folded, cleaved, and metamorphosed. However, deformation intensity is
greater in older rocks than in younger ones, a variation which may be either temporal or
related to burial depth of strata during deformation. Mesoscale and microscale structural
analysis will evaluate kinematics and variability of deformation both stratigraphically and
geographically with respect to the megashear. 40 Ar/ 39 Ar geochronology on
metamorphosed pelites will determine the age of the deformation in the basin.
3. Time of uplift of Caborca block. The age of uplift of the basin margin will be
determined from stratigraphic relations and 40 Ar/ 39 Ar thermochronology in order to
establish time of uplift of the outboard block relative to deformation of the basin. The
uplift analysis will also permit evaluation of provenance results.
This integrated sedimentologic, structural and geochronologic study will evaluate
the transform processes that are inferred to have created the southwestern Cordilleran
margin beginning in the Late Jurassic. If the megashear hypothesis remains tenable, this
study should serve as a template for other analyses of ancient continental transform
margins. If the megashear hypothesis is refuted, the study will force re-evaluation of the
Mesozoic tectonics of the southwestern Cordilleran margin and the kinematics of
Pangean supercontinent break up in Mexico.